NSF's Opportunities for Women in Computing Research Symposium

In an effort to gain the community's interest in and awareness of the need to increase the participation of women in CISE disciplines, the Computing Research Association (CRA) is being funded to present a one day and one evening symposium for 200 undergraduate and graduate female students. The National Science Foundation's CISE Directorate has established a goal that 45% of graduate students in CISE disciplines will be women by the year 2000. The symposium, which is one of a number of activities being recommended by CISE, is to be held on May 22nd. and 23rd., 1993 in Washington, D.C. The students will be studying in CISE areas and will be nominated by their institutions. The CRA is an association of U.S. and Canadian academic departments of Computer Science and Computer Engineering, and Industrial Laboratories engaging in basic computing research. The mission of CRA is to represent and inform the computing research community and to support and promote its interests. Dr. Weingarten is the Executive Director of CRA.